Molecular Genetics Studies of Ribosomes

The ribosome is a large (2.5 MDa) macromolecular complex made
of RNA and protein that is responsible for translation of the genetic
code in all living organisms. Recent progress on the three-dimensional
structure of the ribosome has given many new insights regarding the molecular
mechanism of action of the ribosome in protein synthesis, including specific
models that explain how specific structural features give rise to
specific functions. This project is aimed at testing models for four
functions: (a) discrimination of initiator tRNA; (b) the role of protein
S7 in E-site function; (c) the role of intersubunit bridges in translocation
of tRNA; and (d) the mechanism of unwinding of mRNA secondary structure
by the ribosome. These models will be tested by introducing mutations
in critical elements of ribosomal proteins and/or ribosomal RNA that are
proposed to be involved in these functions, followed by in vitro and/or
in vivo functional assays.